Conference on Research in Income and Wealth: Measuring Capital in the New Economy, April 2002, Washington, DC

This grant will fund a conference on important measurement issues in the economy. As the new economy has developed, intangible assets and high-technology investments have played an increasingly important role in the economy. Important measurement issues have emerged such as how to measure intangible assets, and whether we are measuring high-technology capital accurately. The conference, being co-sponsored by the Conference on Research on Income and Wealth of the National Bureau of Economic Research Inc., will be held in April 2002. Topics to be addressed at the conference include: Financial markets and the valuation of intangible assets, the role of human capital and human resource practices in measuring and understanding intangibles, and the relationship between R&D and the measurement of intangible assets. The goal of the conference is to promote better measurement of capital, which would improve assessments of the economy's long-run rate of growth, the pace of technological change, and of the nation's wealth.